Fundamentals of Embedded Optical Fibers in Structural Concrete, Joint with Brown University

This is a joint project with Brown University to detemine the feasibility of using embedded optical fibers to obtain quantitative data on the response of concrete structures to external loads. The data will be useful to determine the performance of the structure, and to ascertain repair and retrofit methods, if required.